Complexity in Geometric Combinatorics

The project aims at developing geometric methods to solve a variety of
algorithmic
problems regarding various combinatorial structures. The problems
include
enumeration of lattice points in certain sets (such as sets defined by
formulas of Presburger arithmetic), asymptotic counting of
combinatorial structures of a
given type (such as bases in matroids), and understanding metric and
combinatorial properties of some universal convex bodies (such as the
convex cone of non-negative multivariate polynomials). The proposed
approaches include developing computationally efficient techniques of
working with multivariate rational functions, understanding properties
of very large finite metric spaces, and applying methods
from convex geometry.

In combinatorics, we are interested in working with finite, although
very large, sets,
where methods of classical analysis often fail because the main objects
are no longer
smooth but discrete. The project aims at developing efficient
computational methods
for some previously intractable problems dealing with exact or
approximate
enumeration in very large sets and finding maximum (minimum) of
functions defined
on large sets. Many of the considered problems are of interest to
statistics, physics
and optimization.